SHiPPER: Spreading High-Performance computing Participation in undergraduate Education and Research

The Spreading High-Performance computing Participation in undergraduate Education and Research project at the University of Texas at El Paso is awarding scholarships to students pursuing computer science degrees who demonstrate both academic potential and financial need. As a Hispanic-serving Institution, special emphasis is being given to recruiting from underrepresented groups including Hispanics and women. Scholars are participating in interdisciplinary research which is introducing them to the role of high-performance computing in disciplines like computational engineering, computational science, and biomedical science. Scholars are being supported by activities such as faculty led mentoring and a peer-leadership program.